Undergraduate Research Training in Cell and Neurobiology Using Marine Models.

This Research Experiences for Undergraduates award gives continuing support to The Whitney Laboratory, a research institute of the University of Florida, located on the Atlantic Coast, to provide research training for undergraduates in cell and neurobiology using marine animals. Eight faculty members will train students throughout the year in modern, experimental techniques of anatomy, biochemistry, pharmacology, toxicology and electrophysiology for which the facility is exceptionally well equipped. Students are recruited nationwide, and special efforts are made to attract women and minority students, and students in humanities departments who may be encouraged to try science as a career. The students will live on the campus of the laboratory, have access to all facilities, and will become full partners in the ongoing research efforts of their faculty advisors. Their independence will be encouraged, and they will receive full credit for their work in publications. In addition to their practical research training, the students' intellectual growth will be stimulated through participation in the Laboratory's regular seminar series, a special student seminar series, and research discussions provided by each member of the faculty.